Technical Services

9701395 Rabalais This award to Louisiana Universities Marine Consortium provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Pelican, a research vessel operated by LUMCON as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct studies in the Gulf of Mexico in 1997, and will emphasize studies of coastal oceanography along the southern coast of the United States. ***